Weighted Approximation in the Complex Plane and Iterative Methods, via Potential Theory and Function Theory

9707359 Richard S. Varga The goal of this proposal is to attack basic problems in polynomial and rational approximation, with varying weights, in the complex plane, by means of potential theoretic techniques. Recently, the proposers have begun fruitful initial investigations in this area, resulting in a number of new research manuscripts, which we consider to be of break-through character. We clearly feel that these initial investigations are so promising as to warrant the submission of this research proposal to the National Science Foundation. But, an important and novel feature of this proposal is that connections, with the efficientsolution of large nonsingular systems of linear equations by iterative methods, are directly associated with this theoretical work in the complex plane by potential theoretic methods. Thus, the proposed research bridges research in complex function theory and numerical analysis, and will have a strong numerical component. Problems arising in large-scale circuit design, oil recovery via petroleum reservoir machanics, and the design of nuclear reactors for generating electrical power, all have the following item in common: the modeling of these physical phenomena leads to massive nonsingular systems of linear equations, whose unknowns can exceed one million. To efficently solve these systems, iterative methods are commonly used. One aim of this proposal is to use tools, from the fields of potential theory anddd complex function theory, to theoretically attack a specific question on how best to iteratively such large systems of equations.